Travel To Attend: Chemical Process Control - III; Pacific Grove, California (Asilomar Conference Grounds); January 12 - 17, 1986

Travel and publication support is provided for an international conference entitled "Chemical Process Control-III" to be held in January 1986. The conference is expected to bring together industrial, academic, and Government engineers and scientists with the purpose of reviewing past developments and charting the future areas of interest. This meeting explores developments in the areas of control system robustness, process operability, adaptive control, and model predictive control.